Engineering Research Equipment Grant: YAG Laser for Mode- Locking and Pulse Compression Investigations

Partial support is provided for a versatile YAG laser system to generate short optical pulses in use in a wide variety of experiments in which measurement of optical parameters is of interest.